NSF Workshop on the Economics of Cloud Computing

Public cloud computing is rapidly becoming the foundation of our information-based economy. Users are
adopting cloud platforms in lieu of maintaining dedicated computing infrastructure primarily due to the
resulting savings in costs. Since cloud platforms earn revenue from utilizing their infrastructure by
renting it out to customers, and earn no revenue if their infrastructure is idle, their goal is to maximize
utilization. The increasing complexity of cloud markets raises new research
challenges for both users and providers that are inherently economic. This award will support the
organization of a workshop to bring together researchers from computer systems and networks and from
the fields of economics, finance, and operations research to define important research challenges at the
intersection of economics and cloud computing over the next 5-10 years.

The research agenda of the workshop has the potential for broad and transformative impact on the US and
beyond by fostering a new interdisciplinary community in this nascent area, identifying its key research
challenges, and laying the foundation for future innovations that increase the efficiency of using cloud
computing resources. Furthermore, the workshop will engage early career scholars and those from
diverse backgrounds and underrepresented groups to connect them with a broad community of academic
and industrial researchers interested in the intersection of economics and computer systems and
networking.